Conference: 2027 Peptide Materials GRC and GRS

Public Abstract:
This award will provide partial support for the third Peptide Materials Gordon Research Conference, which will be held in Oxnard, California from January 16–22, 2027. The first conference of this kind took place in 2023 and was a great success, bringing together a diverse and highly interactive research community that does not always meet within a single disciplinary venue. The theme of the 2027 conference is “Design, Synthesis, Structure, and Applications.” By bringing together investigators with expertise in synthesis, theory, computation, characterization, and biological function, the meeting will help to expand the community and build connections between researchers at all levels – from leading experts to graduate students.
Peptide materials are unique in that they combine the molecular precision of biology with the design flexibility of synthetic materials, allowing researchers to design materials whose structure, mechanics, responsiveness, and function can be tuned from the amino-acid sequence upward. These efforts have the potential to facilitate the development of next-generation materials for applications ranging from medicine and cancer treatment to bio-based plastics and construction materials, while also providing insight into the role of peptides as materials in living tissues. This event is designed to facilitate the communication of ideas and the potential for collaborative discussions that will continue the rapid advancements in the field. This award helps to create opportunities for graduate students and postdoctoral researchers to participate in the event, helping to broaden participation and pave the way for future generations of scientists.

Technical Abstract:
This award will provide partial support for the third Peptide Materials Gordon Research Conference, which will be held in Oxnard, California from January 16–22, 2027. This event builds on the inaugural conference that took place in 2023, and a second one in 2025, both of which were very successful. This event is unique in that it brings together a diverse and highly interactive research community that does not always meet within a single disciplinary venue. Peptide materials are unique in that they combine the molecular precision of biology with the design flexibility of synthetic materials, allowing researchers to design materials whose structure, mechanics, responsiveness, and function can be tuned from the amino-acid sequence upward. The cutting-edge research that will be presented at this conference has the potential to facilitate the development of next-generation materials for applications ranging from medicine and cancer treatment to bio-based plastics and construction materials, while also providing insight into the role of peptides as materials in living tissues. This event is designed to facilitate the communication of ideas and the potential for collaborative discussions from investigators with expertise in synthesis, theory, computation, characterization, and biological function and help drive further advancements in the field. This award helps to create opportunities for graduate students and postdoctoral researchers to participate in the event, helping to broaden participation, expand the peptide materials community, and pave the way for future generations of scientists.